Travel Support for U.S. and Foreign Participants in the Seventh Marcel Grossmann Meeting on General Relativity; July 24-30, 1994; Stanford, California

Travel funds will be provided for 50 U.S. and foreign scientists to attend the Seventh Marcel Grossman Meeting on Recent Advances in General Relativity at Stanford University, Stanford, California, on July 24-30, 1994. This meeting will provide for dissemination of the latest developments in gravitational physics.